The ACC Synthase Gene.

The mechanism of induction of ACC synthase, the key regulatory enzyme in the ethylene biosynthetic pathway in plants, by various plant hormones and environmental stimuli is poorly understood. Recent experimental evidence obtained by Dr. Theologis' laboratory using DNA sequences complementary to the ACC mRNA indicates that enzyme inducers such as IAA, wounding and Li ions act at the transcriptional or post-transcriptional level. Studies on the structure of the ACC synthase gene in Cucurbita are proposed herein to gain insight in the future into the details of the biochemical mechanism that regulates its expression. The specific aim of this proposal is: Structural characterization of genomic sequences to ACC synthase mRNA in Cucurbita. To achieve this goal the following experiments are proposed. Genomic libraries will be constructed into the cloning vector EMBl3 using DNA from Cucurbita pepo seedlings. The genomic sequences of the ACC synthase will be isolated by plaque filter hybridization using the already isolated Cucurbita cDNA clone pACC1 as probe. The organization and structural analysis of the gene(s) will be investigated in detail. %%% Ethylene is one of the simplest organic molecules with biological activity. It is considered to be the fruit ripening hormone and is known to regulate many aspects of plant growth, development and senescence. ACC synthase is the key enzyme in the synthetic pathway of ethylene.